Mathematical Problems in General Relativity

ABSTRACT

MATHEMATICAL PROBLEMS IN GENERAL RELATIVITY

This proposal deals with mathematical aspects of the problem of
gravitational collapse and the formation of black holes. Analytically
speaking, this is the study of the initial value problem for
appropriate Einstein-matter systems for asymptotically flat initial
data. The central questions in the subject are the celebrated weak and
strong cosmic censorship conjectures of Penrose. In previous work,
the author was able to resolve the issue of strong cosmic censorship in
the setting of the spherically symmetric Einstein-Maxwell scalar field
system, confirming a heuristic picture that had been the subject of debate
in the physics community. The present proposal concerns the development
of a complete theory for gravitational collapse in spherical symmetry,
which at the same time takes into account the physics of angular momentum.
In view of the constraint of spherical symmetry, angular momentum is
simulated through charge. Mathematically, a rigorous formulation is given
by the initial value problem in the large for a charged self-gravitating scalar
field, i.e. for the Einstein-Maxwell-charged scalar field system. The
study can be divided roughly into three analytically distinct families
of problems: the study of the formation of trapped surfaces,
the study of the decay of fields on the event horizon, and the study of
the instability of the Cauchy horizon.
All problems require methods which go well beyond standard techniques of
the theory of quasilinear hyperbolic p.d.e.'s in two dimensions.
In particular, the interaction between geometric features characteristic
of black holes with non-linear wave equations will certainly play a big
role. Understanding these issues in the spherically symmetric case will
hopefully point to the correct framework where these issues can eventually
be studied in the absense of symmetry.

The collapse of a star under the force of its own gravity and
the possible subsequent formation of a black hole is one of the
most exciting predictions of the general theory of relativity. This
process, however, is not well understood. Most of our current
intuition derives from so-called ``explicit solutions'' of the
Einstein equations, the governing equations of the theory.
These ``explicit'' solutions, however, in addition to exhibiting
behavior which is hoped to be physically relevant, exhibit also
behavior widely considered to be pathological. For example, the Kerr
solution, on which our intuition for the final state of gravitational
collapse is largely based, contains so-called ``closed timelike curves''.
These allow observers who enter the black hole to subsequently travel in time.
Is this an unhappy accident of the very special nature of this
solution, or is this a general property of black holes? In view
of the strong non-linearity of the Einstein equations, and the difficulty
of making accurate predictions on the basis of numerical or heuristic
work, this seems to be an area where the techniques of rigorous
mathematical analysis can make a tremendous impact.
In this project, it is proposed to undertake a rigorous mathematical
study of a realistic model of gravitational collapse, in particular one
which takes account of angular momentum, the mechanism that leads to the
failure of ``causality'' in the Kerr solution. Partial progress has
already been made in the author's previous work, and in particular, the
question of the stability of the picture alluded to above has been
resolved in a very restricted setting. As this problem addresses a
spectacular failure of Newtonian determinism in the setting of a
completely classical (i.e. non-quantum)
physical theory, this work could impact current views
on some of the fundamental principles of physics.